Computer-Aided Engineering Design Graphics Instructional Approaches

The project is a short course intended to immerse faculty in the methods and implications of teaching and applying engineering design graphics (EDG) with microcomputer-based graphics workstations and professional computer-aided design drafting (CADD) software. Participants will be guided through lesson plans, exercises, and computer-assisted grading strategies utilized in a highly successful and innovative instructional program for EDG instruction in the University of Illinois College of Engineering. The micro-CADD experience will include producing, modifying and interpreting graphic representations. It will also emphasize database implications of CADD and the use of CADD as an effective graphical interface to advanced systems for CAD, CAM, CAE, CIM, etc. This approach reflects the growing awareness that the effective application of CAD, etc. depends in large part on an individual's ability to visualize "objects" and to create and interpret them in graphic form. The course will include lecture-demonstrations in a specially equipped micro-CADD auditorium featuring a large-screen projection monitor. Individual laboratory assignments will take place on PC-based micro-CADD workstations, during which experienced graduate teaching assistants will assist the instructors in offering individual help and advice. The project directors will maintain personal contact with participants to foster success after the course. In addition to NSF funds, participants' institutions will provide about 30% in travel costs toward the operation of the project.